1996 Workshop on Parallel Unstructured Mesh Computation; September 9-11, 1996; Argonne, IL

The title of this workshop is Parallel Unstructured Mesh Computations. The goal is to bring together leading researchers to design new, fundamental algorithms and software infrastructure that provide an integrated approach to parallel unstructured mesh computation. An important focus is on moving the basic computer science and mathematics research developments into the application arena, while simultaneously fertilizing the basic research with the ideas and difficulties that arise in real application codes. This workshop is being organized by the University of Tennessee and will take place September 9-11, 1996 at the Argonne National Laboratory, in Argonne, IL.